COLLABORATIVE: Center for Engineering Logistics & Distribution--CELDi

This planning grant proposal presents information supporting a multi-university, multi-disciplinary Center for Engineering Logistics and Distribution (CELDi). The proposed center will be a National Science Foundation sponsored Industry/University Cooperative Research Center (I/UCRC). The vision for the center is to provide integrated solutions to logistics problems, through modeling, analysis and intelligent-systems technologies, building upon the knowledge and expertise available at the three member campuses, the University of Arkansas, the University of Oklahoma, and the University of Louisville.